NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of physiological ecology and is entitled "Physiological adaptations in reptiles and amphibians." This study encompasses a field study of overwintering behavior and acid-base status of painted turtles, characterization of the lactate transport mechanism and determination of the fate of lactate in desert reptiles, and a study of anoxia and acidosis in the reptile heart using NMR spectroscopy. This combination of field work and biochemical techniques addresses the suite of physiological mechanisms that match metabolic oxygen and energy requirements with environmental oxygen supply and conditions.